Theoretical and Computational Studies of Density Inhomogeneties in Supercritical Fluids and Their Effect on Solute Reactions

Susan Tucker is supported by a grant from the Theoretical and Computational Chemistry Program to continue her studies of density inhomogeneities in supercritical fluids and their effects on solute reactions. Supercritical fluids are industrially important as environmentally benign solvents for carrying out chemical reactions. Tucker will investigate, using molecular dynamics modeling, the way in which various density inhomogeneities affect reaction dynamics. More specifically she will seek to answer the following questions: 1) How do solvent density inhomogeneities affect solute reaction dynamics? 2) Which are the relevant processes controlling the reactive event? 3) Under what conditions are enhanced solute-solute distributions expected? and 4) What influence will these distributions have upon solute reaction dynamics? Supercritical fluids have recently received widespread attention as potential solvents for use in industrial chemical processes, even though reactivity in these solvents is not yet well understood. The excitement over supercritical fluid solvents arises because the solvating properties of these fluids may be altered dramatically and continuously with modest changes in temperature and pressure. This tunability suggests that it may be possible to conduct a wide variety of chemical reactions in environmentally benign solvents such as supercritical water or carbon dioxide. Tucker's work seeks to understand the unique features of supercritical fluid solvation at the molecular level. This understanding can lead to an improved understanding of how supercritical fluids can be more widely employed in environmentally benign industrial syntheses.